Westnet Inter-Regional Connectivity

9321007 Burns This award assists the Westnet mid-level network in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds eleven T-1 (1.54 million bits per second) connections. Anticipated duration of the award is four years.